Char Deactivation in Flame Environments

This is a study of char deactivation processes emphasizing surface oxides formed from oxidative pyrolysis of coal using four oxidants individually and in combination. The oxidants are oxygen, carbon dioxide, nitric oxide, and water. In addition, rates of scavenging by carbon monoxide are measured. Oxidation and desorption products are monitored using gas chromatography/mass spectrometry. Transient kinetics and temperature-programmed desorption are used to charcterize the surface species on the young chars. Isotopically labelled oxidants are used to further identify the mechanisms of char formation.